Group Travel Support to the Enrico Fermi International School of Physics on Laser Manipulation of Atoms and Ions; Varenna, Italy; July 9-19, 1991

This project supports group travel to the Enrico Fermi International School of Physics entitled "Laser Manipulation of Atoms and Ions" to be held at Villa Monastero, Italy, Varenna, Italy, 9-19 July, 1991. The objective of this school is to conduct courses related to the rapidly developing field of laser manipulation, including laser cooling, electromagnetic trapping of atoms and ions, and neutral atom beam optics. Courses will also deal with applications to the study of atom-photon interactions, atomic collisions, collective effects, atomic interferometry, and atomic clocks.